Certain Algebraic Varieties Related to Finite and Affine Flag Varieties

Flag varieties form an important class of varieties in Algebraic
Geometry. Schubert varieties form an important class of subvarieties inside
flag varieties. The principal investigator developed a ``Standard Monomial
Theory" (henceforth abbreviated SMT) in collaboration with Musili and
Seshadri for flag varieties and their Schubert varieties. This theory has
led to very many important geometric & representation-theoretic
consequences. The principal investigator's recent research shows that once
there is a good SMT for an algebraic variety, much information could be
inferred about the variety (using SMT); for instance, SMT throws light on
the degenerations of the variety. The degenerations of a variety in turn
facilitate the understanding of the geometric aspects of the variety. This
technique has been used very recently in the area of Complexity Theory in
Computer Science, esp., in the context of the ``P not equal to
NP-conjecture". There is yet another interesting and important class of
algebraic varieties related to Flag varieties, namely, the class of orbit
closures for the Adjoint action of a semi-simple algebraic group on the
variety of nilpotent elements in its Lie algebra. While there are very many
interesting algebraic varieties - the determinantal varieties, Ladder
determinantal varieties, quiver varieties - which get identified in a
natural way with certain open subsets in Schubert varieties, the
above-mentioned orbit closures (and more generally orbit closures arising
from cyclic quivers) get identified in a natural way with certain open
subsets in affine Schubert varieties, i.e., Schubert varieties in the
generalized flag variety associated to a Kac-Moody algebra. The research
project considered in this proposal aims at developing a SMT for the
above-mentioned orbit closures via the fore-said relationship with Schubert
varieties ; it also aims at developing a SMT for other interesting classes
of varieties - large Schubert varieties, Spherical varieties etc., as well
as determining in an explicit way the multiplicative structure of the
equivariant Grothendieck ring and the equivariant cohomology ring of flag
varieties.

Modern Algebraic Geometry (developed in the later half of the 20-th century)
has proved itself (beyond any doubts) to be indispensable in various
disciplines within Mathematics as well as in other areas outside
Mathematics:
Examples: Topology, Representation Theory, Combinatorics (within
Mathematics).
The modern Quantum Theory (especially Quantum & Conformal field theories) in
Physics.
Robotics, Complexity Theory, Computer vision in Computer Science.
This proposal is at the cross-roads of Commutative Algebra, Algebraic
Geometry, Combinatorics & Representation-theory. The varieties studied in
this proposal form an important class of varieties in Algebraic Geometry;
for example, the theory of Schubert varieties (over finite fields) is
closely linked to Coding theory. The principal investigator believes that
this proposal is bound to have significant impacts on the above-mentioned
disciplines.